Studies on Ubiquitously-Occurring Filamentous Bacteria of Bulking Activated Sludges and the Attached Microfloras

Research is conducted to obtain a better understanding than now exists of conditions which disrupt the operation of wastewater treatment processes. Under conditions which are not presently completely understood, excessive growth of filamentous microorganisms disrupts the separation of biologically active organisms from wastewater being treated and thus interfers with the need to return these organisms to the process for reuse.